National Coordination Project

Abstract

Proposal : IIS-0233908
Institution: University of Illinois
PI: Leigh Estabrook

This award provides for coordination and support activities for the Interagency Digital Libraries Initiative. The current project is providing services to the sponsoring agencies and communities in the form of
improving the coordination, communication, and information collection and dissemination necessary for ongoing planning activities associated with Digital Libraries Initiative-Phase2.
collect and organize research output of the projects and compile relevant information for sponsoring programs and agencies to assist in planning future levels and directions of support and measurement of scientific impact
collect, aggregate and produce useful information for the larger constituencies of the initiative - both in the US and International arenas
provide logistical and organizational support for working groups and planning activities

These activities will continue as well as new tasks associated with developing and providing support for evaluation processes for the new NSF/DLI2/JISC [United Kingdom Joint Information Systems Committee] international testbeds activity and coordination of NSF/DLI2/EU working groups.